Science and Technology Enhancement Program Project STEP

Project STEP, involves graduate and undergraduate Fellows, secondary science and mathematics teachers, University of Cincinnati faculty and a graphics/web developer, working in teams to design, develop, and implement hands-on activities and technology-driven inquiry-based projects which relate to the students' community issues, as vehicles to teach science and math skills. Activities will be incorporated into lessons, demonstrations, laboratory exercises, individual and group projects, and field experiences to enable middle and high school students to directly experience authentic learning practices that requires them to use higher-order thinking skills; encourage creative problem-solving skills that require collaborative learning, teamwork, writing, and presentation; cultivate an interest in service learning in which students are active participants, achieve outcomes that show a perceptible impact, and engage in evaluative reflection; and better motivate and prepare secondary school students for advanced education. The Fellows will be trained to create and implement these activities by taking an educational methods course, an advanced course in instructional technology, and by serving as teaching assistants and tutors in guiding summer academies for middle and high school students. Quantitative formative and summative evaluation will be conducted to assess the project's effectiveness on Fellows' teaching skills, its impact on middle and high school science and mathematics education, and to continually improve the program as it develops. This project is receiving partial support from the Directorate for Engineering.